Purchase of a High-Field Nuclear Magnetic Resonance Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. This award from the Chemistry Shared Instrumentation Program will help the Chemistry Department of the RUI institution, Franklin & Marshall College, to acquire, operate and maintain a high-field NMR spectrometer. The acquisition of the instrument will enhance the ability of the Department to prepare undergraduates for possible careers in chemistry and will enhance research in the following areas: a) The determination of equilibrium constants, stoichiometry, and structures of Lewis adducts of model organometallic halides of Groups 14 and 15 b) The determination of the structural determinants of organometallic tautomerism and higher coordination c) Thermal rearrangements of bicyclic vinylcyclobutances and stereoselective syntheses of substituted norbornanones and norbornenones and, d) Investigations of infrared laser-induced organic reactions. The instrument will also be used in ongoing collaborative projects with neighboring institutuions such as the determination of substituent effects in phosphineborane organometallics.